Calcium High Temperature Battery Using Intercalation Cathodes

This project aims at the development of a solid-state advanced battery using transition metals immolbilized in B-alumina as electrodes. The Phase I effort has demonstrated that such a system is practical.